Eukaryotic Topoisomerases

Eukaryotic type I topoisomerase (topo I), by virtue of its ability to introduce transient nicks into double-stranded DNA, has been hypothesized to provide temporary swivels for such processes as DNA replication, transcription, and possibly DNA recombination. The objectives of this proposal are to use a combination of genetics and biochemistry to identify the functional domains of the topo I protein and to elucidate the biological role of the enzyme in the mammalian cell. A cDNA corresponding to the human topo I mRNA is available and serves as the starting point for many of the proposed studies. Experiments are designed to introduce specific mutation into the topo I gene with the aim of identifying the minimum region required for enzyme activity. It is possible that these experiments will, in addition, functionally distinguish the sensitivity to the drug comptothecin from the catalytic activity. The possibility that the N-terminal portion of the protein is important for targeting the enzyme to the nucleus and for the association with other nuclear proteins that direct its function in vivo will be investigated. Experiments are proposed to explore further the basis for the preferential association of the enzyme with replicating SV40 DNA. Using technology developed in the SV40 system, the nature and basis for the association of the enzyme with cellular DNA will be investigated. The long range goal of these studies is to understand the relationship between the structure of the topo I protein and its role or roles in the cell.